Numerical Computation of Geodesics in the Framework of Metamorphosis

The proposed research focuses on metamorphosis for shape analysis, which relies on a shape transformation
model within which shape variation is coupled with other transformations of the data, permitting
topological changes, or partial advection of attributes attached to the deformed objects. This results
in a versatile framework in which many different models can be devised, based on any mathematical
structure that can both be advected by diffeomorphisms and embedded in a Hilbert or
Riemannian space. This construction equips the space of deformable objects of interest with a new
Riemannian metric, allowing for the comparison of these objects, and for the use of tools associated
to data analysis in Riemannian manifolds, like the representation of data sets in exponential
charts. The research will involve models of metamorphosis in which the deformable structures are represented
by images, densities, or measures, in two or three dimensions. One of the main issues in
this context is the computation of geodesics, either as a variational problem (shortest path between
two points in the manifold) or as an initial value problem (solving the Euler-Lagrange equation for
the evolution of geodesics). The numerical analysis of both problems is challenging, especially
when one adds the requirement for the two solutions to be numerically consistent, in the sense that
discrete solutions of the first problem coincide with discrete solutions of the second one, which is
important for applications. This research will address these issues, by developing variational
integrators for the initial value problems, and shooting methods for the boundary value
problems, in contexts that will involve solutions that combine smooth and singular components.
The PI and collaborators will also deploy and extend of a comprehensive software
that provides a collection of algorithms associated to diffeomorphic matching.

The goal of shape analysis is to understand and represent variations of shapes in data sets of
deformable objects (like collections of landmarks, images, curves or surfaces). This issue is important,
in particular, for the characterization of anatomical variations in medical images, and of
their relation with pathologies. One of the main areas of applications in this context is known as
Computational Anatomy, and methods from mathematical shape analysis have already been used for
several successful applications. Examples of developments in this domain include collaborations of the PI with
researchers at the Kennedy Krieger Institute in Baltimore, or at the Institute for Computational Medicine at
Johns Hopkins University, on the analysis of brain disease and of cardiac failure.
The theory and tools that will be developed in this research will enable the analysis of situations that cannot be
handled by previous methods, which work under the assumption that anatomical variation can be essentially described
by smooth changes of shape. The proposed approach, called metamorphosis, will be able to address cases
for which these assumptions are not satisfied, and make possible, for example, the analysis of images
that include dramatic changes between subjects. This includes the analysis of datasets measuring the evolution
of tumors, or describing brain recovery after a major stroke. The research will contribute to the emergence of new solutions
in such contexts, and make the related software available to the scientific community.